SBIR Phase II: Microsphere-Based Optical Spectrum Analyzer

This Small Business Innovation Research (SBIR) Phase II project will build upon the exciting results of Phase I, which demonstrated that whispering gallery mode (WGM) resonances of a microsphere can be tuned over a significant range by sweeping the microsphere's temperature. It is intended to employ this effect to produce a temperature-tunable optical filter suitable for development of a next-generation optical spectrum analyzer (OSA) for remotely monitoring dense wavelength division multiplexed (DWDM) networks. Such a device will greatly benefit the telecommunications industry by providing a means of embedded real-time monitoring of system operation and signal quality. This capability has the potential to virtually eliminate costly system failures. The plan for reaching the project goal is to develop a first-generation prototype and use this prototype to demonstrate the expected capabilities of a next-generation OSA.

The initial application for the technology is as an embedded test and monitoring system for telecommunications fiber networks. The major customers are optical network installers and service providers.